Extending the Plus Closure for Mixed Characteristic Rings

In the study of local rings of equicharacteristic p, the
tight closure has proved very useful, This closure also extends
nicely to local rings of equicharacteristic zero. Unfortunately this
closure does not naturally extend to mixed characteristic rings.
This project is designed to fill this void. In earlier work, the
principal investigator defined four variants of an extended plus
closure. As the name suggests, these closures are based upon the
plus closure of an ideal, the set of elements which are in the
extension of the ideal in some integral extension of the original
ring. In the earlier work, a number of properties of the closures
were demonstrated, In this project, additional properties will be
demonstrated, While the benefits of this project will probably not
be restricted to these, the objectives are the properties which shall
allow the extended plus closure to fill the role of tight closure.
Assuming the program is successful, the following will be
demonstrated. Ideals in regular local rings will be shown to be
closed. The colon-capturing property will be proved. The
persistence property will be proved - an element in the closure of an
ideal will remain in the closure upon taking homomorphic images. It
should also be shown that an element which is not in the closure of
an ideal of a local ring will also not be in the closure when the
ideal is extended to the completion. A successful project will have
major ramifications for the homological understanding of mixed
characteristic rings. Among other things, this will imply the truth
of the Direct Summand Conjecture.
One of the most fundamental subjects in algebra is the
understanding of ideals and modules in local rings. For those local
rings which contain a field, tight closure has evolved as a way to
give a unified presentation - and a simplified one - for many of the
known properties of these objects. As a natural byproduct, it has
also led to the discovery of new properties. Understanding of local
rings which do not contain a field has always lagged behind. The
principal investigator has proposed several closely related and
highly promising candidates to play the role of tight closure in the
alternate setting. In this project, the investigator will attempt to
determine to what extent these new closures fill the void.